Hormonal Regulation of Gene Expression in Lymphocytes (Biological Science)

This project tests the hypothesis that insulin and insulin- like growth factor 1 (IGF-1) can inhibit gene expression in lymphocytes. This laboratory recently reported that the growth inducing properties of Interleukin-2 (IL-2) for normal T and B cells can be inhibited by superphysiologic doses of insulin and physiologic doses of IGF-1. Since large doses of insulin are required in comparison to those required for IGF-1, we have postulated that the growth inhibitory properties of insulin are mediated through the IGF-1 receptor on lymphocytes. The experiments will be in two areas: the ability of insulin/IGF-1 to modulate IL-2 gene expression in T cells will be tested, and the ability of insulin/IGF-1 to modulate immunoglobulin M (IgM) J chain gene expression in the BCL1 B cell lymphoma system will be analyzed. The studies will establish whether insulin/IGF-1 are important hormones for inhibition of gene expression, cell growth, and differentiation of T and B cells. The interactive component involves guest lectures in undergraduate and graduate Immunology courses and a special topics course on the molecular and cell biology of T cells. Additionally, Dr. Eardley is organizing a weekly discussion group, including a Saturday workshop, relating to issues concerning women in science. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.